Physiological Influences on Ovulation

The proposed project will investigate possible physiological influences on non-ovulatory sexual behavior in humans. Previous work suggests that a woman's temporal pattern of heterosexual activity may optimize her reproductive cycle through an effect on ovulation or the luteal phase of her cycle. Possible pathways suggested for this effect include the action of olfactory pheromones and the vaginal absorption of components of seminal fluid. Investigation of patterns of sleeping with a man (which involves close proximity) and the use of condoms or coitus interruptus (which prevent the transfer of seminal fluid) will help determine whether the mechanism is olfactory or seminal. The current study will employ a large sample of heterosexual women who will keep daily records across their menstrual cycles. The relationships among ovulation, luteal phase length, cycle length, pattern of sexual activity, birth control method, and pattern of sleeping with a man will be analyzed using appropriate statistical tests. The proposed study should resolve many of the problems with previous studies and clarify the association between sociosexual behavior and reproductive physiology in women. If a pheromonal or seminal mechanism regulating human female reproductive cycle is supported, the results may suggest a possible remedy for people seeking assistance with problems of infertility.